Protein Engineering Beta-Lactamases as Affinity Ligands

The overall objective of the proposed research is to develop an alternative whole fermentation broth bioseparation scheme based on immobilized affinity adsorbents. Beba-lactam antibiotics (e.g penicillin) have been chosen as model bioproducts representing small molecular weight compounds. The overall objective can be divided into the following specific objectives: l.) To protein engineer and design specific affinity ligands such as beta-lactamases for non-destructive but reversible binding of beta- lactam antibiotics. 2.) To evaluate the feasibility of using various protein-engineered ligands to separate the chosen bioproducts and to develop the selection criteria. 3.) To examine the effect of various bead design parameters and reactor configurations of the bioproduct adsorption using immobilized affinity adsorbent beads. This is a joint US-Japan collaborative research project between the University of Michigan and Osaka University. Genetic engineering is to be carried out at Osaka and process engineering is to be carried on at the University of Michigan. The investigators will travel to the other laboratories once a year in order to coordinate and cross-fertilize the research efforts. This proposal requests funds for the US efforts. The Japanese part is to be funded by an appropriate agency in Japan. The investigators are considered to be capable of carrying out the proposed research. This proposal also meets NSF objectives for international cooperation and proposed objectives for cross-disciplinary research of the Biotechnology Program. I, therefore, recommend that this proposal be funded for two years in accordance with the submitted budget.